Integrating Photochemistry with Molecular Catalysts for the Interconversion of Dinitrogen and Ammonia

In this project, Professor Michael Mock of the Department of Chemistry at Montana State University is developing metal compounds to be used as catalysts to convert abundant and inert nitrogen gas found in air to chemicals such as hydrazine or ammonia. The conversion of ammonia to form nitrogen will also be studied. Taken together, these reactions represent a scheme for energy storage. The project will establish strategies using visible light energy that will weaken the bonds of the nitrogen or ammonia molecules in the presence of these metal catalysts. The interconversion of nitrogen and ammonia with metal compounds will be studied by removing and attaching hydrogen atoms using traditional chemicals, electricity, or in conjunction with light energy. The project will use inexpensive and widely available metals like nickel, chromium, and iron to mediate the interconversion of nitrogen gas and ammonia to chemical and/or electrical energy. The design of the metal compounds will be focused on modifying their properties, such that, the same metal compound can be used in both the formation of ammonia and the conversion of ammonia back to nitrogen. In addition, Professor Mock will host undergraduate students from Primarily Undergraduate Institutions from Montana or nationwide to learn about synthetic chemistry and catalysis by performing research in his laboratory to acquire hands-on laboratory skills. Providing hands-on experience in chemistry to undergraduate students will strengthen the technical workforce in Montana and in the United States. This project will enable outreach activities at area primary and secondary schools to engage students on the topics of energy technologies.

In this project, Professor Michael Mock of the Department of Chemistry at Montana State University is studying molecular catalytic systems to develop a nitrogen-based cycle to store and utilize energy in N–H bonds. This project focuses on the development of earth-abundant bidirectional molecular catalysts for N2 reduction and NH3 oxidation, where the same metal complex can perform both reactions when subjected to the necessary conditions to perform catalysis. Catalysts using nickel, chromium, and iron will be designed for the interconversion of dinitrogen (N2) and ammonia (NH3). Photochemical reactions will be employed to promote the homolytic cleavage of M-C bonds to prepare low-valent M-NH3 and M-N2 complexes to enable small molecule activation at the metal center. Strategies that use visible light for the photoexcitation of organic molecules to cleave N-H bonds will be examined to control net H atom transfer processes with the proposed molecular systems. This work aims to understand homolytic N–H bond strengths to improve catalyst design and facilitate bond cleavage and subsequent N–N coupling processes for NH3 oxidation. The delivery of H-atoms to N2 and the removal of H-atoms from NH3 ligands will be accomplished by using chemical reagents, electrocatalytic conditions, and/or light energy. The project will quantify thermodynamic N–H bond strengths and characterize metal-NxHy intermediates relevant to these catalytic processes to advance the design of molecular catalytic systems. In addition to the catalysis research, Professor Mock will host undergraduate students from Primarily Undergraduate Institutions from Montana or nationwide to learn about synthetic chemistry and catalysis by performing research in his laboratory to acquire hands-on laboratory skills. This project will enable outreach activities at area primary and secondary schools to engage students on the topics of energy technologies.